Engineering Research Equipment: Multidimensional Gas Chromatography System

This equipment grant will be used to purchase a multidimensional gas chromatography system to support combustion research activities at Drexel University. The complex analytical problems of separating the intermediates and products from the oxidation of fuel-like hydrocarbons require sophisticated chromatographic techniques. Two complementary methodologies to provide these capabilities are capillary columns and computer-controlled programmed valve switching, also called multi-dimensional or "heart cutting" analysis. While capillary columns by themselves provide increased resolution, they have not been sufficient to separate very complicated mixtures of alkanes, olefins, and oxygenates. To achieve separation, it is often necessary to use multiple columns which are switched into and out of the carrier gas during an analysis. Further separation is often achieved by holding selected fractions of the gas sample in a column and backflushing this partial sample into a second analytical column. This technique is called multidimensional gas chromatography and has been successfully applied to hydrocarbon oxidation studies. The system to be purchased will permit implementation of these sophisticated separation techniques. To allow analysis of permanent gases, the system will be configured to allow dual detector operation using both flame ionization and thermal conductivity detectors. It is necessary to have a basic understanding of the oxidation and ignition characteristics of pure single component fuels and simple mixtures of these fuels before understanding of the oxidation and ignition characteristics of full-boiling range fuels can be developed. This requires development of detailed kinetic mechanisms and verification using analysis techniques to assess the reaction intermediates and products formed during the combustion process. The number of such species formed progressively increases with increasing molecular weight of the fuel. Thus, determination of the large number of compounds involved using conventional gas chromatography becomes extremely difficult and tedious. Use of multidimensional gas separation techniques greatly facilitates species identification for multicomponent samples and thus allows for basic research into the oxidation chemistry of realistic hydrocarbons of higher molecular weight.